SGER: Templated Synthesis of Boron Nanostructures

Lisa D. Pfefferle and Dragos Ciuparu, Department of Chemical Engineering, Yale University, are supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program for exploratory research in the zeolite-templated synthesis of boron nanotubes and nanowhiskers. Their approach is to initiate the nanotube growth inside the pore of a mesoporous molecular sieve, yielding single walled tubes of uniform diameter. Boron nanotubes and nanowires are predicted to have valuable electronic properties that vary depending on the diameter of the nanotube.

This Small Grant for Exploratory Research (SGER) supports high risk/high impact research in molecular electronics and nanotechnology. This interdisciplinary project will also provide training opportunities in these important areas.